Long Island Mathematics Enrichment Institute for High Ability or High Potential Young Women

The State University of New York/College at Old Westbury will implement a two-year project to create the Long Island Mathematics Enrichment Institute for High Ability or High Potential Young Women. The proposed effort will be established in collaboration with the Nassau County Mathematics Association, the Suffolk County Mathematics Association, and the Nassau County Mathematics Supervision Association. For each of two fifteen-Saturday morning cycles Old Westbury will work with twenty- five high ability or high potential 10th or 11th grade young women per semester in the region. During the academic year, young women will participate in career awareness sessions, consciousness-raising efforts, role model lectures, motivational workshops and specialized mathematics instruction. Attendees will undergo sixty hours of academic year project activities, and 12 hours of Summer follow-up exposure. Participants will share Institute training and motivation with classmates in school districts. Videotaping of workshops/seminars will afford teachers the opportunity of viewing presentations with nonparticipating students. A "how to" replication manual after Year II will be available for national replicability. Four hands-on research- oriented field visits/demonstrations during high school intersession breaks will complement academic-year efforts. Parental involvement in workshops, a mentoring component and career planning sessions add a necessary dimension to Institute design.